Jones County Teaching For Learning Mathematics

9453759 BOYD This is a 12-month planning grant for $31,863 to prepare a Systemic Teacher Enhancement proposal for all 96 K-12 teachers in Jones County and will provide specific training for those who teach mathematics. The funding will bring together teachers, parents, and community leaders in this rural, sparsely populated county. The district will work with consultants from North Carolina State University, Meredith College, and the North Carolina Department of Public Instruction. The planning grant has cost sharing funds of $26,808.